1988 Northeast Regional Conference on Developmental Biology,November 17-20, 1988, Marine Biological Laboratory, Woods Hole, Massachusetts

This proposal is a request for funds to help support the 1988 Northeast Regional Conference on Developmental Biology. The Conference will be held at the Maine Biological laboratory, Woods Hole, Massachusetts, November 17-20, 1988. The goal of the Conference is to bring together animal and plant developmental biologist from the Northeast to present their work in formal sessions and informal discussions. A special effort is being made to bring together investigators at all career stages: graduate students to established investigators. The Conference will include four platform sessions, a poster session, a special address in recognition of the 100th anniversary of the Marine Biological Laboratory, and a keynote address. %%% These regional meeting provide an opportunity for graduate students, post doctoral fellows and senior researchers to meet and exchange information in s small manageable group. The meetings therefore provide a valuable training function for the junior members.